Representations of Finite Groups

DADE, 9970030

The main goal of this project is further research into
a most promising conjecture about group characters. The complex
irreducible characters of a finite group G separate
naturally into blocks with respect to any prime p dividing the
order of G. Each such character has a defect, which depends only
on the power of p dividing the degree of that character.
In 1992 the principal investigator of this project formulated a conjecture
relating the number of characters with a fixed defect in a fixed
block of G to the numbers of characters with the same defect in
related blocks of certain p-local subgroups of G. This conjecture,
if true, would imply several other important conjectures about
blocks of group characters. Furthermore, a very strong form of it
would hold for all finite groups G if it held whenever G is
simple. Since the finite simple groups have been classified, this
gives some hope of proving a number of major conjectures about
characters of arbitrary finite groups by verifying this one
strong conjecture for all blocks of finite simple groups. This
verification for any given group involves a long, delicate calculation.
It has been carried out in detail by several people for a large number of
individual simple groups and a few infinite families of such groups. So
far it has always proved to be correct. We hope it will continue to do
so.

Groups in mathematics grew out of the notion of symmetry. We regard
the symmetries of any object in physics, chemistry or mathematics as
transformations of that object onto itself preserving all relevant
properties of the object. Then the composition of two such symmetries is
again a symmetry of the object. So is the inverse of any symmetry. In
mathematical terms, this means that the symmetries form a group. This
symmetry group is an important invariant of the object, and is much
studied. In quantum mechanics, differential geometry and algebraic number
theory the relations of this group with other invariants of the object are
often expressed using representations of the group by complex matrices,
one for each element of the group, which behave under multiplication as
the corresponding group elements do under composition. When the group is
finite, such representations are completely determined by their
characters, which are the functions mapping each group element into the
trace of the corresponding matrix. The relations between finite groups
and their characters have fascinated mathematicians for over a hundred
years. While many of the rules governing such characters are known,
examination of examples suggests that other rules exist. There are many
conjectures about such rules, but they tantalize us by remaining beyond
our powers of proof.